Proposal to NSF from Marymount University to connect to the Virginia Education and Research Network

9318981 Grace Marymount University requests support from NSF for connection of its campus network to VERnet. VERnet is the midlevel network located in the state of Virginia. VERnet will provide operations management and information services and it will give Marymount University connection to the NSFNET, a high (1.5 - 45 million bits per second) National Backbone network. The University needs greater functionality and network speed to be able to access supercomputers, libraries, and make file transfers along with being able to implement a more reliable mail system. Students and faculty research will benefit from the link. This is also a unique opportunity for the school to explore innovative educational resources.